Interaction Mechanism of imidazoline inhibitors with C-steel in corrosion product layer (CPL) evolution in multiphase CO2 corrosion

This award provides funding for a one-year Research Opportunity Award to the University of Florida to work on a joint research project with the Industry/University Cooperative Research Center on Corrosion in Multiphase Technology at Ohio University. This interdisciplinary research program will focus on inhibitor/steel interactions and its effect on the chemistry and morphology of corrosion product layers.